PFT-TT: Detecting Neutrinos as Instrumentation of Nuclear Reactors

The broader impact/commercial potential of this Partnerships for Innovation - Technology Translation (PFI-TT) project is to enable the widespread adoption of advanced nuclear reactors by providing a non-invasive and environmentally responsible method to account for the plutonium produced during the operation of the reactor. Nuclear reactors serve as a source of electric power but also produce plutonium, which can be extracted from the used nuclear fuel and used for other purposes. The proposed project will develop a next-generation plutonium detector.

The proposed project will determine the detector performance requirements for real-world plutonium detection. Neutrino detection can track plutonium production by measuring the effect it has on the spectrum of neutrinos emitted by the reactor. This project will develop: 1) new readout electronics; and 2) a new cosmic-ray neutron shield to reduce the rate of observed background events by an order of magnitude. This project includes a field test for system validation and verification.